Computing Facility for Seismology and Marine Geophysics

This is a request for funds help establish an integrated local computer network where intermediate-level computing will be done on Sun workstations, and larger computations on an IBM Risc system.